RI: Generative Cameras for Low-Cost and Multimodal Distributed Sensing

Cameras that monitor our environment, from traffic and infrastructure to wildlife and security, face a fundamental trade-off between image quality and power. Capturing and transmitting high-quality video drains small batteries in under an hour, forcing real deployments to settle for low resolution or infrequent snapshots. This project will develop a new design, the Generative Camera (GenCam), which pairs extremely simple, low-power sensors with powerful AI models that reconstruct high-quality scenes and descriptions from minimal measurements. Rather than capturing a full image, a GenCam will record only a sparse, low-bandwidth summary of a scene, while heavy computation shifts to the cloud, where AI models trained on vast data fill in the detail. By collapsing the cost of sensing itself, this approach could enable affordable, long-lived cameras for environmental monitoring, public infrastructure, and safety. The project will also integrate its findings into university courses and engage undergraduates and K-12 students through outreach programs at Rice University.

This project will develop the algorithmic foundations of GenCams, conditioning pretrained generative backends (e.g., diffusion models) on low-bitrate measurements to reconstruct high-fidelity content. This raises core problems in sparse conditioning, cross-modal representation learning, and co-optimization of sensing with generative models. The project will address three goals. First, the investigators will develop the GenCam framework to sense and recreate environments using a "plug-and-play" mix of modalities (e.g., RGB, infrared, acoustic) and foundation generative models, progressing from visible-light settings to mixed-spectrum sensing and extensions incorporating audio and language. Second, the investigators will evaluate GenCams on simulated distributed monitoring applications using public data, emphasizing information efficiency, robustness to shift and occlusion, and temporal consistency under strict bitrate and compute budgets, with open, reproducible benchmarks. Third, investigators will fabricate prototypes on minimal, off-the-shelf rigs to validate algorithms and reduce sim-to-real gaps.